Collaboration on Effects of Alternative Technologies on Energy Use and Pollution in China, Phase II

9970425
POLENSKE

This collaborative project with the Institute of Systems Science of the Chinese Academy of Sciences focuses on four goals: 1) expanding knowledge of energy-efficiency improvements, 2) refining current and new analytical tools, 3) integrating estimates of industrial energy-efficiency and pollution generation with in-depth examinations of regional sustainable development issues, and 4) determining regional economic impact implications of the use of alternative technologies. Work in the first two years will focus on the coke-making sector of Shanxi Province. The Chinese counterpart is Prof. Chen Xikang of the Department of Operations Research and Management.